The Geometry of Multivariable Calculus

The Geometry of Multivariable Calculus strengthens the multidimensional geometric intuition that students need, but usually lack, to understand multivariable calculus. To this end, community college and university instructors participating in week-long workshops are designing geometric worksheets ready for use in existing courses ranging from elementary to advanced multivariable calculus to linear algebra. Workshops are taking place in Seattle and Spokane, with subsequent follow-up activities during the academic year. Introduced at the level of undergraduate courses, topics include splines in 1993 and differentials in 1994, with applications to aircraft design, computers, geographic maps, industrial engineering, orbital mechanics, and typography. Applications come from advance mailings, guest lecturers, and demonstrations of computational geometry from the Applied Geometry Corporation and the Boeing Company.